Acquisition of Equipment for Investigating Coincident Seismic and GPR Imaging

0002233
Baker

This grant provides partial support of the costs of acquiring a ground penetrating radar (GPR) system with a set of antennas that operate at frequencies ranging from 25 Mhz to 100 MHz and a field-hardened laptop computer for research in geophysics at the State University of New York - Buffalo. This system will be used together with a multi-channel seismic system for research on the coincident use of seismic and GPR techniques for examining the structure of the ultra-shallow subsurface (< 3 m). The use of complementary geophysical techniques including seismic, which probes the elastic parameters of the subsurface, and GPR, which probes the electromagnetic properties of the subsurface, is a fertile area of research in environmental geophysics and offers promise for delineating and dealing with a variety of environmentally pressing problems including, the fate and transport of hazardous materials, groundwater resource issues, and identification of unmapped buried objects. Near-surface geophysical techniques offer a non-invasive look at the subsurface, have clear applications to societal problems, and are important components of curricula for students of geophysics, particularly in urban environments.
***